Hispanic Engineering Scholarship Program

Engineering (59) The Hispanic Engineering Scholarship Program promotes increasing the level of student majors and level of retention and matriculation of Hispanic students in several CSEMS related disciplines. These disciplines include 120 Hispanic engineering students in undergraduate engineering areas: Electrical,
Industrial, Civil, Chemical, Mechanical, Environmental, and Land Surveying, and graduate
areas: Civil Engineering, Manufacturing Engineering, Manufacturing Competitiveness, and Electrical Engineering.

CSEMS goals directly correlate to the scholarship program at PUPR. These include: i) improved educational opportunities for students in the engineering disciplines, ii) increased retention of students to degree achievement and iii) improved support programs. Students are selected from a set of four categories: (1) Newly Admitted Students; (2) Currently Enrolled Students; (3) Transfer Students, and (4) Graduate Students. Program management staff conduct a series of yearly activities for the cohort group that include: i) faculty mentoring offered by the Retention Office, ii) employment interview skills offered by the COOP Education Office, iii) admissions into Graduate Programs sponsored by the Office of the Dean of Graduate Program, iv) tutoring experiences at the Center for University Progress and, v) internship and research opportunities through the COOP Education Office.